Study of Solar and Atmospheric Neutrinos Using the Super-Kamiokande Detector

***
9816963
Sullivan
Sullivan proposes to install a neutron source in the Super-K Detector.
This source will improve the detector's energy calibration, which is critical to the
understanding of the solar neutrino deficit puzzle. Well-calibrated energy calibration is
needed to identify the sources of neutrino oscillation, which is the prime neutrino deficit
candidate. The installation will be done in the first year but analysis of the data
will be carried out in a 3-year program. With the exception of the purchase of the
neutron source in the first year, most of the subsequent two-year budget goes toward
educating graduate and undergraduate students.
***